Convection, Oscillations and GONNNNG

The long-term goal of this work is an understanding of the magneto-hydrodynamics of
the solar surface at scales from granules to sup-granules. Here sophisticated numerical
simulations which include realistic three-dimensional, compressible, magneto-convection
will be used to model the solar surface and investigate the interaction of convection,
magnetic fields, and oscillations. The simulations will be used to interpret observations
from GONG, SOHO/MDI, and the Swedish 1m Solar Telescope, to test inversion
procedures, and model the subsurface behavior of solar magneto-convection. Specific
objectives include: 1) To uncover the physical processes that determine the solar surface
structure through the interaction of convection and magnetic fields on scales from
granulation to supergranulation. 2) To improve our ability to probe the internal structure
of the Sun via helioseismology. 3) To calibrate local helioseismic inversion procedures
for determining temperatures, flows and magnetic fields near the solar surface. 4) To
investigate p-mode physics (dynamic, magnetic and radiative effects on mode
frequencies, amplitudes and line asymmetries). 5) To probe the creation, emergence,
dispersion and disappearance of magnetic flux in the quiet Sun. And 6) to examine the
origin and maintenance of the magnetic network.
The data sets from these simulations will be made available to the community. The
design of future solar telescopes will be facilitated through the quantitative information
on observables that will result from this work. These calculations will also improve space
weather modeling by providing realistic statistical boundary conditions for numerical
studies of the dynamic solar chromosphere and corona.